Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1998

Abstract DBI-9804251 Kristina Stinson This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1998. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative research into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled exploring life on the edge: are marginal populations likely sources of variation for range expansion? This investigation seeks to determine whether or not plant populations at the edges of a species's range contribute to the gene pool and therefore potentially expand a species's ecological niche through adaptation to a wider range of conditions. The work combines genetic analyses with controlled-environment and transplant experiments to determine the relative roles played by local adaptation, plasticity, and the originating population's genetic composition on the expansion of marginal populations. Kobresia myosuroroides (Cyperaceae), the dominant species of dry alpine woodland meadows of south- central Colorado, is the plant being studied.